ITR: Collaborative Research: (NHS+ASE)-(dmc+int+soc): A Wireless Local Positioning System for Mobile Remote Monitoring

Abstract
This ITR proposal focuses on developing wireless systems capable of positioning
mobiles remotely in complex mobile environments that are encountered in emerging
applications, such as homeland security, law enforcement, defense command and control,
multi-robot coordination, and traffic alert such as vehicle-to-vehicle and vehicle-to-pedestrian
collision avoidance. The proposed wireless local positioning system (WLPS)
has two main components: 1) a base station deployed in a mobile (e.g., vehicles, robots or
handhelds) that serves as a Dynamic Base Station (DBS); and 2) a transponder (TRX)
installed in wireless mobile handhelds, robots and vehicles that act as Active Targets.
Such a framework offers attractive features including high probability-of-detection
performance, low-cost transceiver designs and infrastructure-less operation.
The intellectual merit of the proposed activity is to initiate a multi-disciplinary effort to
address the key challenges in wireless mobile positioning with seamless network
connectivity. Based on the DBS-TRX structure, various wireless communications and
networking technologies will be exploited to establish a paradigm of contiguous,
accurate and mobility-aware positioning with non line-of-sight coverage. In addition, a
laboratory will be set up to provide a cost-effective tool to test and evaluate wireless
positioning schemes in simulated practical environments, as well as to assess the impacts
of WLPS on location-critical tasks such as wireless sensor network cooperation and
routing.
The broader impacts of the proposed activity benefit location-dependent applications that
are critical to human welfare but hindered by the restrictive operation conditions of
current positioning systems. WLPS has multiple potential applications that would benefit
society, ranging from improved localization technology for national and homeland
security (NHS) to economic prosperity (ASE) with better highway safety for both drivers
and pedestrians. The laboratory developed will serve as an educational test bed for
engineering students and researchers. With its broad range of applications, its rich
technical components and multi-disciplinary nature, the proposed WLPS research will
help promote the integration of research with education and outreach activities at all
levels.